Mesoscopically Periodic Responsive Assemblies for Chemical Sensing and Chemical Separations

The unique properties of nano- and mesoscale materials will be utilized to create novel smart materials for chemical sensing and for molecular separation processes. The work will be accomplished through a collaboration that involves a materials science group, a synthetic chemistry group, a bioorganic group, and a theory group, which will together conceptualize, synthesize, and utilize novel optical materials to solve problems in analytical chemistry, biology, clinical medicine, and environmental science. This project will develop new methods in materials science and synthetic chemistry, and will pursue fundamental theoretical understandings of complex chemical systems that combine mesoscale and nanoscale phenomena in complex fluids, hydrogels, and molecular recognition chemistry. This work is to be based on the intelligent polymerized crystalline colloidal array (IPCCA) materials recently developed in the labs of the PIs. The IPCCA material consists of a mesoscopically periodic array of colloidal particles polymerized into an acrylamide hydrogel.